Spin Waves and Other Phenomena in Quantum Fluids

Continued studies of spin-polarized hydrogen and diversification into related areas, e.g., a search for spin waves and a study of spin diffusion in dilute 3He/4He mixtures polarized in an external magnetic field. And a search for superconducting and magnetic transitions in heavy-electron materials in the millikelvin and sub-millikelvin temperature range.